Undergraduate Research in Optics (Physics)

A summer program for undergraduates will be held at San Jose State University. The students will work on the various research programs now underway in the Physics Department, and will meet as a group to discuss their experience and progress. NSF support is highly recommended.